Heterogeneous Nucleation and Condensation on Individual Particles

Air-borne particles are an important and complex component of the atmospheric. Particles act as sites for water vapor condensation and thus are involved in the formation of clouds and influence the properties of clouds. The long range objective of this research is to determine the role and interplay of chemical constituents, such as sulfate and organic compounds, in modifying the composition of particles and their ability to form cloud droplets. A better comprehension of these interactions is required in order to understand the effect on aerosols and clouds of natural and anthropogenic emissions that contribute particulate matter to the atmospheric. The immediate objective of this work is to establish a foundation by investigating heterogeneous nucleation on single well characterized particles. The experimental approach entails electroactive levitation of individual particles in a thermal diffusion chamber which allows for examination and unsaturated to supersaturated conditions. Spectroscopic methods, voltage balancing techniques, and measurement of nucleation rates and thresholds are used to characterize the particles.